Simulating Quark-Gluon Plasmas in String Theory

The proposed research will focus on developing computational tools to help connect
ideas from string theory to experimental results from heavy-ion collisions. In particular,
the proposed description of the quark-gluon plasma in terms of the gauge-string duality
will be developed into a more quantitatively predictive framework. Collective flows, hard
probes, and heavy quarkonium systems will be explored in the context of the
gauge-string duality. The results of the proposed research will include explicit
computations based on string theory that should be capable of comparison with data
from the Relativistic Heavy Ion Collider and from the heavy-ion
program planned for the Large Hadron Collider.